Geometry of Groups and Splittings

Geometry of Groups and Splittings

This project has four components. The first component entails the study
of higher dimensional filling invariants of groups, with emphasis on
contructing examples exhibiting the full range of possible
behavior. Forester and collaborators Brady, Bridson, and Shankar intend
to develop general methods for computing such invariants, and to study
the role of subgroup distortion and curvature. The second component
concerns the construction of geometric structures for particular classes
of groups, such as limit groups, and the study of the structure of
subgroups and ends for these groups. In the third component Forester will
investigate the classification of generalized Baumslag-Solitar groups
and pursue applications. In the fourth component Forester will continue
his work with Rourke on the multivariable adjunction problem, in the case
of torsion-free groups. This work extends and devolops Klyachko's
methods.

Group theory is the theory of symmetry, which plays a fundamental role in
mathematics. Notions of symmetry (or "groups") arise very naturally in
geometry, but also in other, more abstract, areas. In the field of
geometric group theory one studies abstract groups by constructing
geometric spaces, tailor-made for the groups at hand, in order to "see"
the symmetry and understand it. This project involves the detailed study
of the geometric spaces thus constructed.